Converse Theorems and L-Functions of Automorphic Forms

It is proposed to investigate L-functions of automorphic
representations and their applications in the following
contexts:
lifitng from Classical Groups to GL(n);
Converse Theorems for GL(n);
L-funcitons for GL(n);
sub-convexity results for L-functions.
These are all ongoing projects. In addition there is
a return to previous work on non-symmetric complex
homogeneous domains.

The proposal is devoted to the study of Langlans' philosopy,
which is the main part of the modern number theory.
We obtained, by using Converse Theorem, important results
relating the problem of lifting of generic automorphic
representations of the classical groups to GL(n).
Our basic achivement will be the proof of the local and
global Langlands' conjectures.